SBIR Phase II: Ureter Detection during Minimally Invasive or Robotic Surgery by Electrical Stimulus Evoked Responses

The broader impact/commercial potential of this project is to completely change how critical
anatomic structures such as the ureter are identified and protected during surgery. As surgical
technology advances and procedures are done using robots and through millimeter-sized
incisions, there is an ever-increasing need for technology that quickly and easily identifies
different structures in the body during surgery to increase the safety of these techniques,
shorten the operations and decrease healthcare costs both from a procedure length standpoint
as well as surgical complications. Precise electrical stimulation that generates targeted smooth
muscle structure contractions make them immediately visible to the surgeon without needing
to perform complex and risky dissections, and eliminates the need for costly (and invasive)
products such as ureteral stents to keep patients safe. Smooth muscle stimulation during
surgery will change how we operate both today, and in the future. It can help surgeons identify
tissue structures with the push of a button, help determine healthy and unhealthy tissues from
each other, and can guide clinical decision making. With an ever-increasing need to deliver
quality care to patients, technology that increases surgical efficiency, patient safety and
decreases healthcare costs will have high demand and significant commercial impact.

This Small Business Innovation Research (SBIR) Phase II project will greatly advance the field of
surgery through design, development and clinical use of an innovative smooth muscle
stimulation device. Surgeons currently spend up to 40% of their operating time looking for
structures such as the ureter to prevent accidental injury in over 3 million operations done each
year in the US alone, and injuries to this structure accounts for over $3 billion in annual
healthcare over-spending. This Phase II project will bring a unique smooth muscle stimulation
technology into the operating room to benefit surgeons and patients. A signal generator will be
designed and built (with safety features in place), tested, and paired with sterile surgical
instruments. These will be tested first in large animal models as well as in-silico studies to
confirm safety and efficacy, and then a clinical pilot study will be performed in the hospital
setting in patients that consent to participate. The anticipated result of this project is to have a
medical device system that passes all standard electrical safety requirement for human use that
is shown to be clinically effective in assisting surgeons in identification of structures such as the
ureter during lower abdominal/pelvic operations.